Mathematical Sciences: Topological Methods in Representation Theory and Automorphic Forms

9504299 Vilonen The investigator will work on the following subjects, to a large extent using topological methods: representation theory of Lie groups, representation theory of algebraic groups, automorphic sheaves and the geometric Langlands conjecture, and perverse sheaves and micro-local perverse sheaves. The goal is to develop further the geometric techniques that he used with Schmid in solving the Barbasch-Vogan conjecture on the one hand and on the other hand the techniques in his joint work with Mirkovic on modular and integral representations of algebraic groups. One typical type of a problem in mathematics is to discover and understand connections beteen things that from the outset seem unrelated. One of the deepest and most mysterious types of such connections has been suggested by Langlands and is now generally called a Langlands correspondence. A main feature of the investigator's work is to develop geometric techniques to discover and establish such connections. The situation is indeed the most interesting when the two things to be related are not geometric but the connection between them is established by geometry. This is the nature of the investigator's joint work with Schmid that proved the Barbasch-Vogan conjecture. His other work involves the Langlands correspondence alluded to above. In his work with Mirkovic he managed to get quite far in understanding one aspect of Langlands duality by developing new geometric techniques. ***